Dissertation Research: Lithic Raw Materials and Their Implications on Hominid Behavior Along Bed II at Olduvai Gorge, Tanzania

Harris Under the direction of Dr. John Harris, Mr Kyara Onesphor will collect data for his doctoral dissertation. He will conduct both field and laboratory analysis and study stone tool assemblages from sites located at Olduvai Gorge, Tanzania. He will focus on materials included in the Bed II geological strata which are significant because they document a major archaeological and physical transformation in human evolution. Stone tools recovered from this interval are made on a number of different raw materials and archaeologists wish to know what insight this variety might provide into early human behavior. Mr. Onesphor will analyze the tools by typology and by raw material. He will also conduct experiments to determine which kinds of raw materials are best suited to specific functions. He will then travel to Olduvai gorge, locate raw material sources, collect specimens and note the distances to archaeological sites. With the data thus collected he hopes to reconstruct aspects of the cognitive and land use systems of early hominids. The research will produce data of interest to many archaeologists. It will shed new light on the development of human capabilities and assist in the training of a promising young scientist.